Arkansas EPSCoR Program: Phase II

Title: Arkansas EPSCoR Program: Phase II Abstract Narrative: This Arkansas EPSCoR two-year continuation award is to help bring the State of Arkansas up to active status with the thirteen current EPSCoR States so that all seventeen States will compete on equal basis for Advanced Development Grants in 1991-92. The Arkansas proposal embraces three research components: 1) Center for Protein Dynamics, 2) Arkansas Neurobiology Research Center, and 3) Center for Cellular and Molecular Studies on Biological Aging. The total award is for $1,160,000 over the two year period and presents a non-federal "match" of $2,211,000. The proposal was merit reviewed; site visited and recommended for funding subject to some modifications which were incorporated in the award submission. The proposal is recommended for funding.